Studies in Algebraic Geometry

Dolgachev
9970460

The main focus of this proposal is the study families of algebraic surfaces of type K3 with total space equal to a 3-dimensional Calabi-Yau manifold. The string theories compactified on such Calabi-Yau manifolds and their dual theories suggest some interesting relationships between the theory of automorphic forms and thegeometry of such families. We propose to relate this study to some known mathematical constructions of automorphic forms on the period spaces of K3 surfaces.

The area of research in this proposal is algebraic geometry. This is the branch of mathematics dealing with geometric objects connected to systems of algebraic equations of arbitrary degree and in arbitrary number of variables. It has roots its in the ancient Greek geometry of conic sections and the method of coordinates of Rene Descartes.